Multifrequency EPR of Nitrous Oxide Reductase and Cytochrome C Oxidase

The goal of this proposal will be to provide data to firmly establish a model for the electron paramagnetic resonance (EPR) detectable site of the multimetal enzyme cytochrome c oxidase. Comparison between the EPR data at six microwave frequencies for the copper site of nitrous oxide reductase and the EPR detectable copper in cytochrome c oxidase will be used to unravel the EPR data. Derivatives of cytochrome c oxidase and nitrous oxide reductase, for which the ratio of copper per subunit or the ratio of copper to iron vary, will be compared with the native forms of both enzymes to determine an optimum functional unit. Second derivative spectra will provide resolution of at least nine lines for the EPR detectable site in cytochrome c oxidase. Computer simulations from data at six different microwave frequencies will be used to obtain EPR parameters. EPR parameters and saturation recovery data will be used to identify low lying energy states in order to understand the primary electron transfer pathway.